PRF: Mitotic and Meiotic Inheritance of Alternative Epigenetic States

Evolution involves change in the biochemical information that helps specify the heritable phenotype of an organism. Mitotically heritable epigenetic information, in the form of cellular levels of transcription factors, has been proposed to specify differentiated cell phenotypes in multicellular organisms. Similar epigenetic information may help specify heritable phenotypes of asexually reproductive organisms. Furthermore, if such epigenetic information is inherited in meiosis as well as mitosis, then it could also play a role specifying heritable phenotypes of sexually reproductive organisms. The Principal Investigator will design a DNA construct consisting of the gene encoding the yeast activator, GAL4, driven off a promoter containing two GAL4 binding sites. This construct will be introduced into the yeast, Saccharomyces cerevisiae. The GAL4 encoded by this construct will have alternative steady state cellular levels, each specifying a phenotypically distinguishable epigenetic state. The inheritance of the alternative epigenetic states through mitosis and meiosis will then be determined.